Coalitions, Dominance and Egalitarianism

Cooperation and dominance are central to the study of animal
social relations, a remarkable feature of which is the emergence
and persistence of linear dominance hierarchies or "pecking
orders." For well over half a century, the conventional
theoretical approach to cooperation and dominance has been to
study them separately. But this approach ultimately yields
diminishing returns, because each phenomenon incorporates crucial
aspects of the other. On the one hand, a dominance hierarchy is a
cooperative structure: well organized groups, in which each
individual knows and is fairly resigned to its particular social
status, are more productive than similar groups in a constant
state of organizational turmoil. On the other hand, there are
individual benefits to holding high rank within a dominance
hierarchy, and animals can help themselves obtain those benefits
by forming coalitions with others. The investigator studies these
connections between cooperation and dominance by developing a
suite of analytical and computational models to predict the
effects of coalition formation on the emergence and stability of
dominance hierarchies versus more egalitarian social structures,
and to identify conditions that favor each possible outcome. The
models are "games," i.e., mathematical models of strategic
interaction.

There is no formal theory to predict the effects of
coalitions and domoinance hierarchies on each other, yet such
theory is urgently needed to guide and interpret field studies in
the biological and social sciences. The development of such a
formal theory also leads to advances in game-theoretic techniques.
Moreover, because there are good reasons to suppose that
mechanisms for social stability are broadly similar across
different kinds of groups, the project has likely implications for
conflict resolution among humans. In particular, the results of
the project should help to resolve an ongoing controversy in
anthropology between those who argue that egalitarian societies
are deliberately shaped by their members, with the political rank
and file creating a "reverse dominance hierarchy," and those who
stress that levelling mechanisms operate independently of people's
intentions. Finally, a central goal is to develop an online game
theory workshop for students in the life and social sciences. All
materials developed during the project -- in particular, numerous
game-theoretic computer programs -- are made freely available
through this web site. It therefore serves as a permanent legacy,
with the potential to strengthen the modelling skills of every
student of game theory.